Support for Student Summer School Participation; Ambleside, UK

This award provides partial support for a student to participate in the International Linear Collider Summer School, Ambleside, United Kingdom, Aug. 17-23,2009.